The Pluri-Potential Theory and Its Applications

Proposal Number: DMS-0200743
PI: Evgeny Poletsky

ABSTRACT

This project proposes the further study of the geometric
complex analysis, mostly, through pluri-potential theory.
Research will be conducted in the following topics:
the existence of a "general" potential theory containing
all the necessary background; the complex geometry of
infinite-dimensional spaces related to classical problems
for plurisubharmonic functions; the complex geometry of
compact sets via the pluri-potential theory on such
sets; the geometry of domains and multipole Green
functions (the classical analog is the Martin-Caratheodory
compactification) and Bernstein-Walsh and Markov
inequalities for generalized polynomials. Other geometric
questions will also be considered.

In this project research will be conducted on geometric
complex analysis. Geometry, as a part of mathematics,
aims to describe qualitative links between different
objects. For example, parallel lines do not meet and the
heights in a triangle meet at the same point. When
Euclidean objects: points, lines and planes are replaced
by more complicated structures: functions, surfaces and
sets, the research is of a more delicate flavor.
It happens because the mechanism providing links between
objects is not transparent. In our proposal we will look
for such a mechanism in the form of potentials similar to
the energy levels of electrical charges.